Acquisition of an X-Ray Diffraction Unit

This Rigaku x-ray diffraction system with 5-position sample chamber, high temperature attachement, stress analysis attachment, Debye Scherrer and Laue attachements will be used by faculty members of the Materials Science and Engineering faculty of the Department of Mechanical and Aerospace Engineering, and will also be incorporated as a training unit to introduce undergraduates to materials characterization methods. Several research projects will benefit from access to this system, including solidification processing of hybrid materials, creep behavior and substructure in ceramic solid-solution alloys, effect of residual stresses on the fatigue behavior of advanced composties, microstructure characterization in materials under high-temperature deformation conditions, and structural development in ceramic materials. There is no x-ray capability at UC-Irvine.